ITR: An Infrastructure for Veterinary Telemedicine - Proactive Herd Health Management for Disease Prevention from Farm to Market

The goal of this project is to research and develop a prototype,
technology-rich infrastructure to support economical continuous monitoring
of cattle state of health via remote and wearable devices that interact
with a veterinary health information network. Wireless stations,
distributed databases, and physiological assessment algorithms will play a
key role in this environment. These systems are improving the ability of
the livestock industry to react to and predict disease onset and its
epidemiological spread, whether from natural or terrorist events. Trend
analysis and health prediction lessons learned from this effort have
application to human state-of-health prediction and disease spread in
human populations.

The researchers are placing Bluetooth-compliant monitoring stations near
cattle congregation points, such as feed bunks and watering troughs. These
stations upload data from environmental sensors, Bluetooth-enabled devices
with global positioning capability worn by the animals, and
wearable/remote biomedical sensors. Local algorithms perform rapid data
analysis prior to uploading ranch summary data to regional databases,
where the data is correlated with information provided by nearby
producers. Significant findings are then immediately broadcast to regional
veterinarians, producers, and authorities. In order to accomplish this, the research addresses a number of important information technology issues, including scheduling algorithms that adaptively determine where data analysis should occur and which areas require more in-depth analysis; prioritization algorithms for multiple wireless data streams with near-real-time constraints; and area-appropriate data mining techniques to find problem indicators.

The interdisciplinary project is addressing a critical need within the agricultural
and national communities: applied research that allows the animal
sciences industry to react to and predict disease onset in cattle and its
epidemiological spread. Through the development of a distributed software
infrastructure, a comprehensive physiological monitoring toolset, and new
processing algorithms (e.g., for data storage, fusion, and
interpretation), we are helping to improve the financial stability of the
livestock industry while simultaneously raising our level of preparedness
for epidemiological disasters, whether from natural or terrorist events.